Presidential Young Investigator Award: Joining of Plastics and Composites

The objectives of this research are to investigate and explain the four basic steps of the welding of plastics and composites: (1) heating and heat transfer, (2) squeeze flow, (3) intermolecular diffusion, and (4) through experimentation and modeling. The research will include: determining the heating mechanisms and heat transfer for internal and external heating methods, predicting the squeeze flow of viscoelastic liquids under combined static and dynamic loadings, evaluating methods for measuring intermolecular diffusion, investigating the effects of time, temperature pressure on diffusion and healing of weld interfaces, and evaluating the effects of cooling on microstructure and on residual stresses and distortions. The results of these studies will be used to model new and existing welding processes like hot plate, vibration, laser, infrared, resistance, induction, and others. The research will also determine the effect of process parameters on weld quality, and enable development of sensors for closed-loop control of these processes. This research could lead to better, faster, more reliable, and less costly manufacturing of plastic and composite structures.